Investigations of the Mesoscale Structure of Continental Winter Cyclonic Storms

Due to the potential for disruption of human and economic activities, precipitation characteristics of winter-time cyclones are of great practical as well as scientific interest. It has been known for some time that the heaviest precipitation from these systems occurs in relatively narrow precipitation bands. Over the past several years, the organization of precipitation bands in cyclonic storms has received a great deal of attention with a variety of physical mechanisms being proposed to explain the characteristics of these bands. Most of the previous observational studies of bandedness in winter cyclonic storms have been conducted in coastal regions which experience quite different meteorological conditions than the mid-continental area. Previously, the Principal Investigators were involved in field experiments to collect data on these winter-time banded structures. The field projects included advanced instrumentation such as Doppler radar and wind profiling system. The Principal Investigators will continue their analysis of this observational data and expand their research to contain a numerical modelling component. Primary objectives will be to describe the physical characteristics and mesoscale organization of precipitation bands and to isolate the dynamic mechanisms responsible for the formation and evolution of the bands.